Collaborative Research: COLIMATE: An On-Chip Spectrometer Array for Multi-Line Intensity Mapping Cosmology

This project will implement a new technique called line intensity mapping (LIM) to detect galaxies much further back in time than previously possible. LIM is like mapping the forest instead of the trees. Mapping the forest of distant galaxies will be used to uncover what drives the expansion of the universe, and how galaxies formed stars over billions of years. To make these maps, the project builds a novel imaging spectrometer for the South Pole Telescope (SPT): COLIMATE (the COsmology Line Intensity Mapping with Advanced Technology Experiment). In the COLIMATE focal plane, each pixel is its own spectrometer, built using quantum superconducting circuits printed on a silicon wafer utilizing advanced manufacturing techniques. COLIMATE will be the largest camera of its kind, five times more sensitive than earlier versions. The project team will train future scientists and engineers by building lessons for a graduate summer school and providing undergraduates from small colleges hands-on lab experience. Public videos and illustrations that explain the LIM measurement in simple terms will be created and shared with the public at a Chicago science festival.

Line Intensity Mapping (LIM) is an emerging technique to detect emission from faint, unresolved galaxies tracing cosmic structure in 3D. Measuring this structure across time offers a unique path to testing the physics underlying our cosmological model – including inflation, dark energy, and relativistic species – and directly mapping the buildup of galaxies throughout cosmic time. COLIMATE is a spectroscopic millimeter-wave focal plane which will enable LIM from high-redshift carbon monoxide (CO). The basis of this proposal utilizes the quantum-enabled detectors (KIDS) and advanced manufacturing for the fabrication of the devices as well as the associated optomechanics. As the first survey-class millimeter-wave LIM focal plane, with 48 on-chip spectrometers observing at spectral resolution R>100, COLIMATE will make unprecedented measurements of cold molecular gas and constrain the expansion rate of the universe over a wide redshift range (0.3 < z < 3) when deployed on next-generation facilities such as SPT-3G+. Building on the SuperSpec and SPT-SLIM pathfinders, the project will improve detector responsivity and microstrip transmission, and introduce a multi-level focal plane architecture to maximize packing density and optical throughput.